Parallel Computation and Computational Geometry

The goal of this program is the development of a theoretical foundation for research in parallel computation and computational geometry. Specifically the following areas will be studied. (1) Geometric constructions in parallel (2) Parallel data structuring techniques (3) Geometric problems from graphics and solid modeling In addition, many of the algorithms will be implemented on existing hardware to experimentally benchmark the overhead inherent in these algorithms.